The 2009 John H. Barrett Memorial Lectures

The Barrett Lectures Series began in 1970 as a tribute to the
memory of our distinguished scientist, John H. Barrett. They have
been given annually since 1972 by a succession of distinguished
lecturers on a topic selected by the Department of Mathematics
each year. The 2009 Barrett Lectures will be in the area of
Probability with ``Stochastic Analysis and Its Applications'' as
its general theme. The lecturers will consist of two principle
speakers (Professors Richard Bass and Ofer Zeitouni), who will
present three one-hour lectures each; and five additional invited
speakers (Professors Amarjit Budhiraja, Dan Crisan, Christian
Houdre, Davar Khoshnevisan, and Wembo Li), who will give one
hour-long lecture each. Further, about a dozen contributed talks
of fifteen minutes each by junior researchers and graduate
students will be given.

The scientific program of the Lecture Series will emphasize a
selection of possible applications of stochastic analysis.
Professor Bass proposes to lecture on potential theory and
integro-differential equations while Professor Zeitouni intends to
speak on problems in the study of random walks in random media.
The one-hour speakers are expected to speak on filtering,
stochastic partial differential equations driven by Levy
processes, random polynomials, and other topics related to
stochastic analysis and its applications. The main objective
of the 2009-Barrett Lectures is to provide the participants the
opportunity to gain a rapid and concise introduction to these
rapidly developing fields of Stochastic Analysis and Its
Applications through lectures and informal discussions.